Pan-American Advanced Studies Institutes on Frontiers in Imaging Science; Colombia, Summer, 2010

0921656
Guzman

This Pan-American Advanced Studies Institutes (PASI) award, jointly supported by the NSF and the Department of Energy (DOE), will take place in early summer 2010 at the Universidad de los Andes and the Universidad Nacional de Colombia in Colombia. Organized by Dr. Angela Guzman of the Florida Atlantic University, the PASI will address frontiers in imaging science. Lectures and presentations will relate to the following topics of contemporary imaging research: advances in optical microscopy, new methods for improving astronomical imaging, novel imaging methods that operate without lenses, and new theoretical developments that facilitate an understanding of the imaging of electromagnetic and acoustic waves.

Expected outcomes from the PASI include: (a) identification and reinforcement of cross-disciplinary collaborations between current scientists engaged in imaging research; (b) a more effective utilization of experimental facilities and a possible redirection of imaging research collaborations at Florida Atlantic University and the Florida Max Planck Member Institute for Bioimaging; (c) an increase in the exchange of graduate students between Latin American and U.S. universities doing imaging research; and (d) an increase in the number of Hispanics enrolling in imaging science and engineering programs in the United States. Results from the PASI will be made available through a PASI website developed for the activity.